Structural Analysis of E.coli Transcription Complexes

The synthesis of RNA (transcription) is a process common to all organisms, and is catalyzed by the enzyme RNA polymerase. It is a central step in the flow of information from the DNA to cellular structure and function and is subject to considerable regulation. The transcription process can be divided into two types of activities. The first includes those steps which are common to all RNA polymerases: the synthesis of RNA by polymerization of nucleotides in the template - directed reaction. The second includes the regulatory processes which modulate transcription and differ in complexity and mechanism among organisms. The proposed experiments are designed to analyze these activities at the molecular level by employing photochemical crosslinking. The bacterium Escherichia coli will be used as a model for these studies. The in vitro transcription system employing purified E. coli RNA polymerase has been well characterized, and many transcriptional regulatory factors have been identified. By incorporating nucleotide analogs which are tagged with photoreactive crosslinking groups into the RNA during transcription, it is possible to probe the molecular environment of the RNA during its synthesis. RNA containing such analogs becomes covalently attached to adjacent molecules upon irradiation with ultraviolet light . RNA will be synthesized in vito which contains photocrosslinking groups at different positions within the RNA, and the contacts made between these groups and the RNA polymerase subunits and/or DNA template will be analyzed. The immediate goal of this work is to use photocrosslinking nucleotide analogs to identify the RNA polymerase domains involved in substrate and product binding, as well as the regions containing the catalytic activities for phosphodiester bond formation and RNA displacement from the DNA-RNA hybrid. These experiments should provide information about the fundamental mechanisms of RNA synthesis common to all RNA polymerases. The question conformational differences among transcription complexed from differentially regulated promoters (antiterminated, stringently controlled, etc.). The long range goal is to structurally characterize the E.coli transcription complex, understand the mechanism of RNA synthesis at the molecular level, and analyze the effects of regulatory factors such as NusA of ppGpp on RNA polymerase conformation and activity.